Mathematical Sciences: Workshop on Bayesian Statistics in Science and Technology

As increasingly much background information becomes available to scientists undertaking an investigation, it is important to utilize previous knowledge effectively in designing studies and analyzing data. Bayesian statistical methods are tailored to this computation, but scientific meetings rarely spend substantial time discussing applications of Bayesian statistics. The goal is to elucidate the interplay between theory and practice and thereby identify successful methods and indicate important directions for future research.